Modeling and Observations of Climate Variability

The objective in this research project is to investigate, (a) the fundamental dynamics of the atmosphere as they relate to the production and maintenance of large-scale variability on time scales of several weeks to a season, (b) low frequency variability using daily rainfall and rawinsondes observations, and ship reports of surface wind vectors, and (c) the predictability of a coupled ocean-atmosphere model and its sensitivity to some of the simplifications and physical specifications made in developing it. This is an important project since it will help to provide a basis for future development of a model that simulates both mid-latitude and tropical coupled ocean-atmosphere interactions.